Photophysical Investigations of Hydrogen Bonded Complexes in Solution

9303817 Moog Richard S. Moog is supported by a grant from the Theoretical and Computational Chemistry Program to perform condensed phase spectroscopic studies. Two lines of research will be pursued. The first study will compare the rotational reorientation of Coumarin 102 dye in non-polar decalin with the reorientation lifetime in fluorinated alcohols to see what the effects of hydrogen bonding are on the reorientation times. The second study will examine the photoinduced double proton transfer reaction of hydrogen bonded 1-azacarbazole : alcohol complexes in alcohol solutions and in dilute aprotic solvents. Most of the work will employ time resolved fluorescence measurements. %%% The physical and chemical properties of solutes are profoundly influenced by the solution environment. The influence of solvent on chemical reactions and the dynamical processes which occur in solution have been widely investigated. This research has shown that, rather than providing an inert and static medium in which physical and chemical processes occur, the solvent often plays an active and crucial role in these processes. The investigvations to be performed by Moog will be specifically directed at understanding the role which intermolecular hydrogen bonding plays in solute reactivity and dynamics in solution. ***